U.S.-Canada: A Study of the Abitibi-Grenville Lithosphere by Teleseismic Analyses: Upper Mantle Anisotropy and Heterogeneity

29322499 Hearn This Americas Program award will support a research collaboration between Dr. Thomas Hearn of New Mexico State University, Las Cruces and Dr. Marianne Mareschal, Ecole Polytechnique, Montreal, Quebec, Canada. They propose to deploy a passive-source seismic array along the Lithoprobe Abitibi-Grenville Geologic Transect to complement seismic reflection profiles and magnetotelluric data. A primary goal of this study is to test the hypothesis that both mantle seismic anisotropy and mantle structure in the region are related to Proterozoic and Archean orogenic episodes. The site is a logical place to test such hypothesis, both because the available Lithoprobe data and because the transect lies over a portion of the Canadian shield that experienced major Proterozoic and Archean deformation. This project combines the expertise of Lithoprobe, Canada's national, earth science research project, with the unique capabilities provided by the U.S. Incorporated Research Institutions for Seismology (IRIS). While the Lithoprobe project has focused on investigating the crust using exploration techniques, IRIS will provide its PASCAL portable seismic array, which is more suited for investigating upper mantle structure. The Canadian group will focus on the analysis of travel time data, while the U.S. group will work primarily with the analysis of shear-wave data. ***